Summer Research for College Teachers with Emphasis in Bioanalytical Chemistry

This MacroROA grant, supported by the Analytical and Surface Chemistry Program in the Chemistry Division, supports summer research by small-college faculty at the University of Kansas. It is unique in its focus on bioanalytical chemistry. Continued contact with former participants further encourages improvement in undergraduate research at these 4-year institutions. %%% Four-year college faculty will enhance their research skills in the area of bioanalytical chemistry by participating in this MacroROA program, supported by the Analytical and Surface Chemistry Program in the Chemistry Division. By maintaining follow-up contact after the summer's work, continued collaborations, intellectual support, and networking will be enhanced.